ASTC Seminar on Project Planning, Proposal Development and Grants Management; Washington, DC; Fall, 2001

The Association of Science-Technology Centers (ASTC) proposes to conduct a seminar for senior staff at science centers on project planning, proposal development and project management, including grant management. The overall goal is to build capacity within science centers to develop and manage fundable projects consistent with the guidelines of the ISE program. Presenters and discussants will include successful ISE PI's and reviewers. ASTC will stipulate that participation requires teams comprised of a top-level decision-maker, project planner and a development officer or other cognizant team member from each institution. Furthermore, teams from medium- and smaller-sized institutions will be encouraged to participate and given priority consideration.